TC: Small: Securing Web Software Systems

The world-wide web has become one of computing's great success stories,
changing the way that people around the world communicate, compute,
and conduct their business. Unfortunately, security problems on the web
are prevalent, and these problems increase costs for website operators
and for Internet users. This project aims to develop new methods for
securing the web, providing website developers and operators with new
and improved tools to protect their site and their users.

The research involves several technical directions. First, to help
protect existing websites, this project will investigate ways of hardening
legacy web application code to defend it against the most common attacks.
Second, to provide a solid foundation for web systems of the future,
this project will study how to provide robust protection for newly
developed code. The project will also study web development frameworks
that are safe by construction. Third, this project will develop tools
and techniques to incrementally migrate existing web applications to
next-generation safe-by-construction web frameworks. Fourth, this project
will devise and carry out user studies to measure rigorously the effect
of different programming languages, frameworks, and programming practices
upon the security of web applications. The broader impacts resulting from
the proposed activity are potentially significant; if it is successful,
this research could have a significant positive impact on the security
of web services and, in the longer term, on software security in general.